Protein Purification and Detection System for Plant Biochemistry

9970610

Abstract

This project involves the aquisition, installation and use of a versatile and high throughput system that allows fractionation of soluble and membrane proteins from different plant and microbial systems and a sensitive protein detection instrument with high dynamic range of quantification capacity. These two pieces of equipment will serve as the core of a protein facility being established by a group of six active scientists at the Ohio State Plant Biotechnology Center. This facility will provide support to several major projects involved in signaling pathways in polarized cell growth, cell division and cell plate formation, pathogenesis, oxidative stress and oxygen sensing. In addition, this equipment will aid in training of graduate students for exploring the function of various new proteins that are being discovered by this group. The six participating groups absolutely require protein purification and detection capabilities to contiue to address the functions of novel proteins and protein-protein interactions. The equipment being acquired in this project will provide a state-of-the-art facility for protein purification and analysis for this talented group of investigators.